Mathematical Model for Laminated Glass Units Including Experimental Verification

This project will study the behavior of laminated glass, which consists of two monolithic glass plates joined with an elastomeric interlayer, subjected to lateral loads. Experimental tests will be carried out at two different temperatures and various loads simulating wind, human contact or missiles. These results will be used for the verification of two mathematical models which incorporate the simile of the interactions between the interlayer and the glass plates. Since laminated glass is used by the construction industry predominantly as safety glazing and overhead glazing, the results of this project will help designers, architects and engineers to better understand the performance of this type of glass.